Polymerization in Supercritical Fluids

This research entails solution polymerization in a supercritical fluid (SCF) as solvent. The thesis is that the advantage of polymerization in SCF is that polymer (product) solubility can be easily controlled by varying the temperature and pressure. This, in turn, implies that polymer of a desired narrow molecular weight (MW) range can be produced because as soon as this MW is attained, the temperature or pressure are changed, and all the monomer and polymer are instantaneously precipitated out of solution. The reaction thus comes to an immediate halt. There is an added advantage in that the SCF remains a gas and the expensive, highly energy-intensive process of separating product from solvent is eliminated.